Acquisition of a Tunable CW Laser Facility

Instrumentation will be provided by this grant that will establish a tunable CW laser facility in the Physics Department at the University of Washington. This will make possible new range of precision experiments in atomic physics using the trapping of single atoms to establish more stable time and frequency standards, as well as new tests of atomic parity and time reversal symmetry violation. In addition, this new facility will aid in the study of condensed matter interfaces and heterostructures. The facility will provide cw laser operation from the ultraviolet region through the near infrared.